Experiments in Spin 1/2, One Dimensional, Heisenberg Ferromagnets and Related Topics

This work aims to continue a variety of studies all related to magnetism, superconductivity, and electron spin resonance. Proposed research topics include critical exponents for quasi-two dimensional systems and ordered state resonance for layered magnetic materials; stacked linear oligomers; bound magnon contributions to the thermodynamics of S=1/2 Heisenberg-Ising Ferromagnets; superconductivity; and proton glasses.